ITR: Science on the Semantic Web -- Prototypes in Bioinformatics

This medium ITR project will develop a framework to facilitate science
research and education on the semantic web, and will implement and
evaluate prototype tools and applications for use in the biocomplexity
and biodiversity domains. These capabilities include the ability to
collaborate and convey meaning through the automatic and
semi-automatic semantic annotation of web documents; to improve
information retrieval using background knowledge and inference; and to
extract and fuse information from multiple, heterogeneous sources in
response to a query. A testbed for prototyping these capabilities will
be the web portal of the National Biological Information
Infrastructure (http://www.nbii.org/). The framework will include
specifications for ontologies, protocols, agents, and tools for
authoring, automated ingest, and annotation. These tools will leverage
collaboratively constructed ontologies to bring diverse communities
together and enable community construction of scientific
knowledge. Additional domain-independent, general purpose ontologies
will be developed to enable metadata about the contents and structure
of databases and other knowledge repositories to be expressed in
emerging knowledge markup languages such as RDF and OWL. This will
enable agents to both access and index the hidden web, and will also
support the data mining of diverse and distributed databases.